SSC: Drew Saturday Science Academy Summer Camp

The Drew Saturday Science Academy Summer Camp will be a (4) week residential SMET enrichment activity for (16) minority middle school students in south Central Los Angeles. The goal of the program is to increase and improve the pool of qualified minority students pursuing science, math, engineering, and technological educational pathways. Program objectives include: 1) Increasing the number of students successfully completing algebra and geometry; 2) Improving the analytical reading and critical thinking skills of these students; 3) Involving parents by increasing their awareness of what students need to succeed in SMET Careers; 4) Improve computer literacy; 5) Demonstrating knowledge of exploratory research modalities; and 6) Demonstrate increased awareness of science, math, engineering and technological career opportunities. This will be accomplished using the themes of space, flight and aeronautics in hands-on labs. Using the approach it is anticipated that students will be more inclined to continue on the SMET educational pathway. ***